Computer Experiments in Differential Equations

A consortia of six institutions is conducting a series of six week long workshops over a three year period to enhance the expertise of mathematics faculty in the development and use of interactive computer experiments in differential equations. Consortia members are Cornell University, Harvey Mudd College, Rennselaer Polytechnic Institute, St. Olaf College, Washington State University, and West Valley College. The computer projects are designed to be hardware/software independent and are intended to supplement standard courses in order to add another dimension to instruction in ordinary differential equations. The primary goal of each workshop is to develop faculty expertise on a particular hardware/software platform so that they can design and use interactive computer experiments in a laboratory environment. A second goal is to develop an ongoing Consortium to promote the writing and evaluation of computer experiments in differential equations and its applications as well as in related areas of mathematics.